Request for Rehabilitation and Improvement of Data Acquisition and Processing Equipment for Dynamic Tests

WPC> 2 B R V Z Z #| x Courier T ? x x x h x 6 X @ K X @ QMS PS Jet + QMPSJE.PRS x @ h h h h tX @ 2 < < 9316903 Sozen This is an equipment grant to acquire research equipment dedicated primarily to dynamic experiments by (1) replacement of the current VAXII with a 4 Mb memory by a SUN SPARC System (SIOGX 30 325) with a 32 Mb memory, (2) enhancement of the disk capacity from 480 Mb to 5200 Mb, (3) improvement of the accelerometer filters to enable acquisition of reliable data at high (30 Hz and above) frequencies, (4) purchase of state of the art optical transducers to facilitate instrumentation for displacement, and (5) acquisition of hardware and software to accelerate and improve presentation of acquired data. These research equipment to be acquired are essential to maintain the seismic experimental research capability at the University of Illinois at a high, productive level. ***